Promoting Understanding of Trigonometry for Technologically-Reliant Trajectories

The project focuses on an analysis of the trigonometric concepts and skills needed to successfully traverse a "knowledge supply chain" towards three technologically reliant fields: semi-conductor fields, graphic arts, and acoustic analysis and design. The study is designed to examine how to establish an explicit linkage between career preparation for high technology positions ranging from technician to engineer or artist and the academic preparation of a high school in the particular instance of trigonometric reasoning. It is believed that such redesign of school practice will be necessary to support a larger segment of the population in pursuing and mastering mathematics-related concepts and skills.